Organic Reactions Using Colbalt Alkyne Complexes

The focus of this research involves a systematic reinvestigation of the mechanism of the Pauson-Khand reaction which will give a better understanding this important process. Second, the Pauson-Khand reaction will be used as a key step in the synthesis of the natural product asteriscanolide and, third, Professor Krafft will probe electrophilic addition to unactivated alkenes. %%% With this renewal award, the Synthetic Organic Program is supporting the research of Dr. Marie E. Krafft of the Department of Chemistry at Florida State University. Professor Krafft will focus her work on the chemistry of cobalt-alkyne complexes. Both mechanistic studies and synthetic applications of the the Pauson-Khand reaction will be carried out in order to develop new strategies for the construction of carbon-carbon bonds.